Third International Symposium on Coastal Ocean Space Utili- zation (COSU III) - March 30-April 1, 1993

The New Jersey Marine Sciences Consortium, in conjunction with the University of Genoa, Regions Liguria of Italy, and the National Oceanic and Atmospheric Administration, proposes to design, coordinate, execute, and control the third International Symposium on Coastal Ocean Space Utilization. This Conference on March 30 to April 2, 1993 will bring together leading ocean experts from science, technology, industry, and government to consider questions of how to effectively use ocean space for sustainable development. The three day Conference will comprise five topics, including about 30 individual presentations. These experts will examine the sociological and technological aspects of living and working on and in the ocean. Speakers will be recruited from more than a dozen nations, mainly in Europe and the USA. Finally, this symposium, as in International forum, will consider major technical issues and problems in order to highlight the most promising research opportunities in the ocean. Thus, the most important product of the Conference will be its identification and guidance of the most promising ocean technology research possibilities.